SBIR Phase I: A Source for High Rate Growth of Gallium Nitride Films

This Small Business Innovation Research (SBIR) Phase I project is for the development of a neutral, high
flux/fluence nitrogen atom beam source for application to the high rate growth of III-V nitride
semiconducting materials over large areas. The proposed source is based on Physical Sciences Inc.'s
(PSI's) proprietary MID-JET technology. This technology employs an electrode-less discharge
contained by vortex flow, rather than a dielectric tube commonly used in traditional sources. The
discharge is formed at 1 atm which results in efficient Ion recombination and a charge-free beam.
Previously, high flux, high fluence oxygen and fluorine atom beams have been demonstrated using a
MID-JET with a gas temperature of ~ 3000 K. However, to produce a nitrogen atom beam, the basic
configuration of the MID-JET must be changed to obtain the > 5000 K temperatures required to
dissociate nitrogen. In Phase I, PSI will examine at least two new configurations via modeling, select
one, and fabricate and test an experimental source for nitrogen. Techniques for combining the nitrogen
beam with a gallium source will be examined via detailed numerical modeling. If successful, PSI will
demonstrate a charge-free nitrogen atom source with a fluence of about 10 21 atoms/s, 2 to 3 orders of
magnitude higher than that generated by currently available sources.

This project will develop a charge-free, high flux/fluence nitrogen atom beam for the growth of III-V
nitride materials which can replace existing plasma-based tools. The source can allow higher growth
rates over larger areas of high quality material with application to the fabrication of high power/high
temperature semiconductor devices and blue illumination sources (including those for flat panel
displays).